MRI: Acquisition of a cathodoluminescence (CL) microscope system for earth science research and education at Appalachian State University

0922942
Carmichael

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Funds from this grant will support the acquisition of a cathodoluminescence (CL) microscope for petrologic research and research training at Appalachian State University. The CL microscope will support the beginning research careers of two female geoscientists with research interests igneous and sedimentary petrology. The instrument will aid in student research training in methods of optical petrography. Appalachian State
serves an area of the country where many enrollees are first generation college students. This equipment will also serve faculty and students from nearby East Tennessee State University.

***